Gordon Research Conference: Modeling in Solar Terrestrial Physics

This grant is primarily for graduate students travel to the Gordon Research Conference, entitled "Modelling in Solar TerrestriaL Physics." which will be held at the Plymouth State College, in Plymouth New Hampshire on July 30th through August 3rd, 1990. This conference on the physical and mathematical basis for the various modelling efforts underway is very timely. By inviting atmospheric scientists to describe and review the methods used in their already successful modelling efforts, the conference has the potential of simulating rapid progress in the task of unifying fast microscale phenomena with slower macroscale phenomena in computational models of geospace. This conference will provide an excellent forum for informal exchange between space and atmosphere physicists that will enhance greatly our understanding of the issues and processes involved. ***//